Advanced Computational Models for Electromagnetic Nondestructive Evaluation via Boundary Integral Equations

This research concerns the development of an advanced computational model for electromagnetic nondestructive evaluation. The model allows the user to efficiently and reliably calculate the interaction between a probe and a flaw within a workpiece. The work will integrate recent research in the areas of volume-integral and boundary-integral equations in computational electromagnetics.